A gene regulatory pathway that balances animal survival and proliferation

Changes to the environment including contamination are major threats to animal diversity and human wellbeing. Cap 'n' collar transcription factors (CNCs) are master regulators of genes that protect animals from environmental stress. Understanding and predicting how animals and humans respond to environmental stress will require a detailed understanding of CNC regulation and function. The genetic model organism Caenorhabditis elegans has numerous experimental advantages for studying these processes. C. elegans is also a model for understanding the biology of nematodes, which as parasites damage $80 billion of crops per year, burden animal husbandry, and infect as many as 1/3 of humans world-wide.
C. elegans has a single CNC named SKN-1. The objectives of this project are to 1) define how SKN-1 is regulated during environmental stress by combining protein biochemistry with transgenic experiments in live animals and 2) use genetics and molecular biology to identify and characterize genes that function with SKN-1. This new knowledge will facilitate a deeper understanding of how animals acclimate and adapt to challenging environments and will provide a foundation for understanding nematode defenses to anti-parasitic drugs and host-immune responses.
This project will educate and train students, teachers, and scientists at the pre-collegiate, undergraduate, graduate, and post-doctoral levels. New concepts and ideas will be translated to ~225 largely pre-medical, dental, veterinary, and doctoral students through a stress biology module in an intensive upper level undergraduate course. Outreach programs will introduce primary school students to nematodes and a training module will introduce high-school teachers to C. elegans as a genetic and molecular model system for education, animal biology, biotechnology, and biomedical research.